Time-Dependent Dynamics on a Lattice

Direct, time dependent solutions to the Schroedinger equation are performed using lattice techniques and parallel computation. Problems to be studied include correlated two electron processes in atoms, heavy-particle collisions with atoms and two electron wavepackets in external fields.